IUC Project: Adjustable Micelles in Supercritical Fluids

Based on recent work on reverse micellar solubilization of hydrophilic proteins and recent observations of reverse micelles in supercritical fluids, it is hypothesized that hydrophilic proteins may be readily taken up by and precipitated from reverse micelles in a supercritical fluid. Since aggregation numbers of reverse micelles vary tremendously with the solubility parameter of the organic used as a solvent and since the solubility parameter of a supercritical solvent varies dramatically with the location of the system in phase space above the critical point, aggregation numbers of reverse micelles should vary dramatically with pressure and temperature in a supercritical solvent. Since the partition coefficient of proteins in reverse micelles is strongly dependent on the size of the reverse micelles, slight changes in conditions above the critical point might readily force the proteins from the reverse micelles into an aqueous phase. This phenomenon, if it can be demonstrated, would form the basis of a potentially valuable separation process for biomolecules. This system has many elements which make it highly promising with regard to industrial applications in the area of bioseparations.